Baboon Rank and Paternity

Savanna baboons represent a group of closely related populations living across subsaharan Africa outside the tropical rain forest. Scientists do not agree whether they comprise one or several species because, although they are very similar morphologically, populations differ significantly in social characteristics. For the analysis of primate social organization and its relationship to humans, savanna baboons are thus excellent subjects. In order to understand the social relationships among individuals in such a population, it is necessary to know who are the parents of individual infants. Previous studies have been hampered by knowing only who is the mother each infant. Previous long-term field observations of this population by the Principal Investigator have resulted in knowing all individuals behaviorally. Maternity is known, but paternity--based on behavioral observations--is only assumed. In this study genetic studies (paternity tests) will also determine who the father is of each infant. These genetic studies will test the hypothesis that such behavioral father (based on observations of the animals) is also the genetic father. As a result of this study it will be possible to test a variety of behavioral questions such as: whether inbreeding and incest occur; whether paternal certainty is related to protection from infanticide; and, whether male access to alpha status is related to the status of his father.